Accretion and Outflows of Rotating Magnetized Stars

This research centers on accretion and outflow in rotating stars with magnetic
fields. Examples of such objects include young T Tauri stars, white dwarfs in cataclysmic
variables, and neutron stars in various binary systems. Here, a theoretical and
computational effort will be undertaken in which advanced modeling codes, including a
3D program using a cubed sphere numerical grid, will be used to investigate accretion
and outflow processes among such stars. Specific goals are to: (1) Better understand how
disk material interacts with stellar magnetospheres, and which instabilities are
responsible for launching the disk matter to the magnetic field lines of the star. (2) To
explore how the multipolar structure of a stellar magnetosphere influences the accretion
process. And (3) to determine what is the dominant mechanism of launching outflows
from magnetized stars.
The techniques and numerical methods developed here will also have general value and
are applicable in other areas of science like planetary science, geophysics, earth
magnetospheric science, heliospheric science, and in engineering. Young scientists
(including undergraduates and graduate students) will be trained in
magnetohydrodynamics. A research associate will also be supported who, in addition to
working closely with the Principle Investigators, will aid in the education of students.
Results from this work will be incorporated into the groups outreach programs, including
and exhibit at the local Science Center and in an outreach program being developed for
school children and teachers.